Improved Technologies for Protein Structure Determination by NMR

9407569 Montelione The objectives of this work are to develop pulse sequences and computer software which will automate the process of protein structure determination by multidimensional NMR. Pulsed-field gradient (PFG) technology will be optimized to provide improved sensitivity and better H2O solvent suppression by using two-and three-gradient pulse sequences. A family of PFG triple resonance NMR pulse sequences will be designed which provide optimal input for automated analysis software. Artificial intelligence will be applied in developing user-friendly software for analyzing these data, including automation of the processes of resonance assignment, compilation of experimental distance constraints, and structure generation. This software will accelerate the structure determination process for small (<10 KDa) proteins. This technology development will be carried out on samples of isotope- enriched protein growth factors, transcription factors, IgG binding domains, and protease inhibitors for which prokaryotic production expression systems are already available in the laboratory. %%% The technology will greatly enhance the applicability and accessibility of NMR spectroscopy as a tool for protein engineering and structural biology, and improve the competitiveness of the United States in these important biotechnology areas. It will make amenable to NMR studies many proteins which are presently inaccessible for various technical reasons, and accelorate the process of molecular structure analysis. The techniques and the data which result from this work will provide important infrastructure for determining the three-dimensional structures of many different proteins by NMR, and will have important implications in several related fields including protein engineering, protein chemistry, protein folding and agricultural biotechnology. The work will have a significant impact on the infrastructure of biophysical chemistry by enhancing the effectiveness, informat ion content, and interpretability of NMR technology. ***